Group Travel to the 15th. Triennial Meeting of the International Society on General Relativity and Gravity; Pune, India; December 16-21, 1997

Travel funds are provided to enable 19 U.S. scientists to attend GR15 (the 15th triennial meeting of the International Society on General Relativity and Gravity). Availability of funds will be announced, and then applications by prospective conference participants will be reviewed by a panel of experienced U.S. scientists.